Purchase of a High Field Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Southwest Texas State University aquire a 300 MHz NMR spectrometer and workstation. This equipment will enhance research in a number of areas including the following: (1) calixarene, boron and vanadium chemistry (2) novel polymers containing the 3,3-bis(trifluormethyl)-1,3-dihydro-2,1-benzoxasilole ring (3) polymers resistant of atomic oxygen ablation (4) siderophore chemistry (5) new sampling and analysis methods for isocyanates, and (6) bacterial polysaccharide tertiary structure. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.